Computational Aspects of Linear Logic

9224858 Lincoln Logical elegance and execution speed are typically thought to be incompatible traits of declarative programs, but recent developments in resource-conscious logics indicate that it might be possible to resolve this tension. Type systems for functional languages based on linear logic can be exploited by compilers to generate optimized target code. Linear logic can also be used as a computational framework for logic programming. Logic programming calculi will be enriched with control and update primitives inspired by the linear connectives. Insights from logic, type theory, and automated reasoning will enhance both the expressiveness and execution speed of declarative programming languages. ***